NSF Young Investigator

To: From: [email] (Alan J. Izenman) Subject: Gelman.NYI Abstract Cc: Bcc: X-Attachments: This research, supported by a National Science Foundation Young Investigator Award, will focus on the theory, computation, and testing of Bayesian probability models, and on the study of electoral systems, the effects of redistributing, and voting behavior. The National Science Foundation Young Investigator Award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for significant development as a teacher and academic leader.